Engineering Research Equipment Grant: Acquisition of Two-Component LDV System for Combustion Research

The addition of a laser system to the existing one-component laser velocity system at Davis will make possible the simultaneous measurements of two projections of the velocity. In this manner, axisymmetrical or two dimensional unsteady phenomena will be completely characterized. Several areas of research are thus opened to accurate investigation: turbulent, corrugated, unsteady flames. The results expected from this new capability will permit the resolution of a number of flame phenomena which have been so far identified qualitatively only. A more extensive data base will be built, which will inseminate a broad range of combustion studies. A grant of $39,555 to be matched by the University California is hereby recommended for CBT-8706435.